Luminescence Transition Probabilities in Semiconductors

Their research will consist of experimental determination and theoretical interpretation of electronic transition rates for donor-acceptor pair luminescence and for carrier capture in Zinc Selenium and their dependence on presence of interstitial and substitutional donor species.